Expedited Award for Novel Research: A Priority Base Expert System for Solving Multiple Objective Linear Programming Problems

This project involves the development of a framework for constructing an expert system based multiple objective decision support system. The approach is to conceptually decouple the decision making activities from the mathematical programming computations, and then employ AI techniques to efficiently determine preferences and interactively solve the multiple objective LP problem. This approach is novel and could lead to exciting developments for interactive, on- line decision support systems for operational systems. It is also quite timely and deserving of immediate attention. The interface of operations research and artificial intelligence is an area that was identified in a recent OR workshop as an important area for future direction of research. Ben Malakooti is a young scholar with demonstrated capabilities for conducting this research and Case Western Reserve University provides an excellent environment for the study. A novel award is recommended.